Hydrographic and Velocity Fields in the Southwestern South Atlantic--A Winter from FS Polarstern

In this project, the PI will exploit available ship time on the German research vessel, FS POLARSTERN, to study wintertime convection and transport in the southeastern Atlantic Ocean, with focus on the Falkland Current, the poleward extension and anticyclonic return of the Brazil current, and two major fronts of the Antarctic Circumpolar Current during the Austral winter of 1992. Conductivity, Temperature vs Depth (CTD), oxygen, and nutrient measurements will be made. Eight surface drifters will also be deployed to obtain absolute Lagrangian current data for comparison with the hydrographic measurements.